Acquisition of a Versatile Raman Spectrometer for the Chemistry Department

This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program and the Major Research Instrumentation (MRI) Program will assist the Department of Chemistry at Rutgers University to acquire an Raman spectrometer and an Ar+ pumped mode-locked Ti:sapphire laser. This equipment will enhance research in a number of areas including the following: (1) monomolecular films at the air/water interface, (2) the ultrafast kinetic investigation of excited states and reactive species, (3) synthetic proteins as models, and (4) enzyme mechanisms. A laser can provide important information about chemical reactivity. Its use may enable breakthroughs in our understanding of the properties of reactivity and non-reactivity of molecules..